REU Site: Research Experience for Undergraduates at the Univ. of Iowa in Computer Vision, Robotics, Simulation, Virtual Environments, and Mobile Communication Systems

9322132 Kearney This project supports undergraduate partcipation in research projects in the areas of computer vision, robotics, simulation, virtual environments, and mobile communication systems. Two programs are supported: A 10 week long, intensive summer program and a 30 week long program during the academic year. Research projects include: programming behaviors of simulated vehicles in virtual driving environments; simulating robot locomotion; integrating three-dimensional vision and graphics; programming texture description and stereo matching algorithms; and developing applications for mobile computers. The projects provide hands-on laboratory experience with state-of-the-art software and computing facilities working on challenging research problems. u 5F5G5H5I5J5K5L5M5N5O5P5Q5R5S5T5U5V5W5X5Y5Z5 5\5 5^5_5`5a5b5c5d5e5f5g5h5i5j5k5l5m5n5o5p5q5r5s5t5u5v5w5x5y5z5{5|5}5~5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 5 59322132 Kearney This project supports undergraduate partcipation in research projects in the areas of computer vision, robotic ! ! G Times Symbol " Helvetica Chicago Times New Roman & Arial 5 Courier New Palatino Arial Narrow Book Antiqua Bookman Old Style Century Gothic Monotype Corsiva Monotype Sorts Century Schoolbook Wingdings MT Extra 1 Courier " * e # me Tracey Zeigler